Acquisition of a New Electron Microprobe

This award provides one-half the funding needed to acquire an electron microprobe for installation and operation in the Department of Geological Sciences at the University of California, Santa Barbara. The University is committed to providing the remaining funds necessary for this acquisition. The new electron microprobe is essential for the research programs of several of the faculty in the Department of Geological Sciences in the areas of petrology, geochemistry, and mineralogy. The instrument will also be made available campus-wide and will be used by researchers in the fields of materials science and anthropology, as well as research students in science.